Collaborative Research: Elements: SoftDFT: Cyberinfrastructure for Classical Density Functional Theory to Predict the Structure and Thermodynamics of Complex Fluids

Predicting how molecules organize and respond to their environment is a fundamental challenge in the design of advanced materials and soft-matter systems, including membranes, batteries, coatings, biomaterials, drug-delivery technologies, and water-treatment processes. Researchers increasingly rely on computational tools to understand and optimize these systems before costly experiments are performed. While molecular simulation methods benefit from widely used community software platforms, comparable cyberinfrastructure does not exist for classical density functional theory (cDFT), a powerful modeling approach that can often provide molecularly informed predictions at substantially lower computational cost. This project will develop SoftDFT, an open-source software platform that makes advanced cDFT methods broadly accessible to researchers, educators, and students. By providing a shared computational framework for modeling polymers, polyelectrolytes, and other complex fluid systems, SoftDFT will transform a large library of specialized research codes into a reusable community resource. The project will support scientific discovery through openly accessible software for computational materials design and educational activities while strengthening the nation’s research infrastructure for molecular modeling of soft-matter systems. It will also contribute to workforce development by training students in scientific computing, molecular engineering, and open-source software development. By lowering barriers to advanced computational tools and expanding access to predictive modeling capabilities, the project accelerates the development of polymeric materials and technologies relevant to energy, manufacturing, environmental sustainability, and human health.

This project will develop SoftDFT, an open-source cyberinfrastructure platform for classical density functional theory (cDFT) and Ising density functional theory (iDFT) calculations of complex fluids, polymers, and chemically responsive materials. The project will transform a large library of existing research codes into a user-friendly software framework with modular support for computing free-energy functionals, molecular architectures, and chemical reaction schemes. The technical work will produce three integrated capabilities. First, the project will establish a validated equilibrium cDFT/iDFT engine for one-, two-, and three-dimensional inhomogeneous systems. The engine will incorporate scalable numerical methods and systematic validation procedures to support robust and reproducible calculations. Second, the project will extend SoftDFT from single-state equilibrium calculations to reusable workflows for parameter continuation, phase-equilibrium calculations, and to a dynamic density functional framework for describing transport processes. Third, the project will package these capabilities as community cyberinfrastructure through documentation, tutorials, benchmark suites, versioned software releases, and interfaces that support integration with simulation, optimization, machine-learning, and multiscale modeling workflows. The resulting platform will provide researchers with reusable tools for studying adsorption, interfacial behavior, and self-assembly of polymeric materials, including weak polyelectrolytes, polymer brushes, and related soft-matter systems. By consolidating specialized cDFT implementations into a validated and extensible software environment, SoftDFT will make advanced density functional methods easier to apply, compare, reproduce, and extend across research groups.

This award by the Office of Advanced Cyberinfrastructure(OAC) is funded by the section of Material Research within the Directorate for Mathematical and Physical Science (MPS).